Instrumentation for Training in Molecular Biology

Equipment will enable students to study molecular biology in general and DNA manipulations in particular. Courses to be enhanced include Molecular Biology, Immunology, Genetics, and Microbiology. Electrophoretic gel apparatus, power supplies, and photographic equipment will enhance existing experimental work in Genetics and Microbiology and will, along with a Geiger counter, form the basis for a new laboratory sequence in the Molecular Biology course. A microtiter plate reader will upgrade laboratory work also be used by students doing honors work or independent study. The university will provide 50% matching funds.